Minority Graduate Assistantship for Kevin Walker

Kevin D. Walker has been awarded a Minority Graduate Assistantship in Chemistry. The Minority Graduate Assistantships in Chemistry are viewed as an infrastructural investment designed to broaden the participation, knowledge, and experience of students who are members of minority groups underrepresented in Chemistry, and attract them into meaningful careers in chemical research and teaching. %%% Mr. Walker has a B.S. degree from Seattle University. He is currently a graduate student at the University of Washington, specializing in Organic Chemistry under the supervision of Prof. Heinz G. Floss.